Comparative Analysis of Historic and Paleomagnetic Secular Variation

The goal of this project is to analyze historic and Holocene paleomagnetic secular variation data from the Northern Hemisphere. New methods of analysis will be developed as part of the work to improve the comparison of primarily spatial historic-field and primarily temporal paleomagnetic-field data. These methods are shown to resolve some outstanding problems with the interpretation of secular variation. The final results of the proposed work should produce a more coherent view of the interrelationship of historic and paleomagnetic secular variation.